Mapping the Future

Under the Communicating Research to Public Audiences solicitation, the University of California,Berkeley proposes to produce a one-hour documentary on research conducted at the Angelo Coast Range Reserve, a research reserve that is the focus of two large scale NSF projects. The National Center for Earth Surface Dynamics (NCED) and the National Center for Airborne Laser Mapping (NCALM). The resulting video will be distributed through the UCTV satellite feed and archived on their on-line video on demand library, and also be the subject of local outreach efforts with schools and community groups in the remote, rural area in which the Reserve is located.